Upgrade of the UC Berkeley Seismological Laboratory and Geophysics Computer Laboratory Communication Network

9809738 Romanowicz This grant provides partial support of the costs of upgrading the Ethernet network for both the Geophysics Computer Lab (GCL) and the Berkeley Seismological Laboratory (BSL) at the University of California at Berkeley. A new 100 Base T (100 Mbits/s) network with associated peripherals will replace the 10 Base T (10 Mbits/s) network currently in place. The GCL and BSL provide the primary data acquisition and analysis infrastructure for the Berkeley Digital Seismographic Network (BDSN), the Bay Area Regional Deformation (BARD) network and data archival for the Northern California Seismic Network (NCSN) operated by the USGS. In addition, the upgraded network will permit high bandwidth connections to a number of Pentium desktop systems that were recently awarded to the Geology Department as part of a larger UC- Berkeley "Millennium" computer award from Intel. An order of magnitude increase in baud rate will improve the PI's abilities to utilize parallel processing for 3-D seismic attenuation and shallow crustal wave propagation models and will serve the greater geophysics community by providing more rapid access to publicly archived data from the BDSN, BARD and the NCSN. ***